Experimental Investigation of Fluid-Mineral Equilibria in Subduction Zones

The principal investigator will study fluid-rock interaction under high-pressure conditions. To do so he will experimentally investig- ate the solubilities of talc+enstatite, enstatite+forsterite, albite, and jadeite at high pressure. This will provide constraints necessary to evaluate mass transfer processes in subduction zones.